COLLABORATIVE RESEARCH: Tectonics and Paleomagnetism of Kamachatka Peninsula Composite Terranes, Northeastern Russia

9706391 Kepezhinskas Paleomagnetic data has proven key to the interpretation of terrane migration and accretion along several convergent continental margins, with Alaska being as notable example. Existing data suggests that the Kamchatka Peninsula, Russia may also be a college of accreted allochthonous terranes, but the geologic and paleomagnetic data base is not extensive, and the area is difficult logistically. This project will attempt to place the paleomagnetic and geologic data on a firmer base so that plate kinematic models related to terrane emplacement can be formulated and tested. Results will increase knowledge about terranes in Kamchatka and provide the basis for understanding displacement histories of northern Pacific terranes.